Development of Computational Physics Course

This grant will supply the necessary equipment for a course in the use of computers to solve problems arising from research in physics. The use of computer graphics as a problem-solving tool will be included. This activity is supported under the Instrumentation and LAboratory Improvement Program.